International Symposium: Biochemical and Structural Dynamicsof the Cell Nucleus to be held Taipei, Taiwan in June, 1989

This award is for partial travel support for American participants to participate in an International Symposium on Biochemical and Structural Dynamics of the Cell Nucleus, to be held in Taipei, Taiwan in June of 1989. The conference program will bring together an unusual mix of scientists from all over the world, to discuss cutting-edge aspects of the biology of the eukaryotic nucleus. Its location in Taiwan will promote scientific exchange between East and West.